RIA: Experimental Investigation of Brittle to Ductile Transition in Cleavage Fracture

The purpose of the research to be performed on this RIA award is to provide information on fundamental mechanisms that manifest during the brittle-to-ductile transition (BDT) process using a novel experimental technique. The issues to be addressed are: (1) whether BDT is controlled by crack tip dislocation nucleation or dislocation mobility; (2) what are the critical crack tip dislocation configurations that result in BDT; (3) what is the strain rate sensitivity of the BDT; and (4) what are the effects of impurities on the BDT.